Scanning Probe Microscope for Thermal Diagnosis and Manufacturing at Nanoscale

ABSTRACT Chen 9622274 Support was requested for a scanning probe microscope capable of operating as a scanning tunneling microscope, an atomic force microscope, or a scanning thermal microscope. Applications to the study of energy transfer in nanostructures, electronic devices, and optoelectronic devices are envisioned. The grant was supported under the Research Equipement Grant Program.